CAREER: Computational Ethics in Human-Scale Autonomous Systems

The creation of intelligent systems that are autonomous, update their own objectives, and interact with humans in their daily lives, has long been a driving force in systems engineering, robotics, and Artificial Intelligence. Example systems include nursing robots in hospitals, self-driving vehicles, and worker bots collaborating with humans. An explicit ethical awareness in these systems is recognized as a necessary condition for successful daily interaction with humans. However, to this day, there are comparatively few algorithms, and even fewer tools, for designing ethics-equipped Autonomous Intelligent Systems (AIS), especially when integrated with a physical control loop. This research develops a computational theory and formal design tools for ethics-equipped embodied AIS.

The project focuses on the design tasks of model-checking, controller synthesis, and constrained learning from data, of formalized ethical guidelines. Such guidelines take the form of statements of Obligation (`The robot ought to care for the patient in greater pain'), Permission (`The robot is permitted to offer a mask to a contagious patient') and Prohibition (`The robot is forbidden from factoring gender into care decisions'). The investigators formalize such Obligations, Permissions and Prohibitions in a deontic logic developed as part of the project. Methods from software engineering, optimal control, and deep learning, are employed to create a design pipeline that allows transparent and rigorous experimentation with different guidelines. An education plan for undergraduate and high-school students complements the research’s goal of enabling communities and professionals from different disciplines to assess the claims of autonomous systems manufacturers and determine their alignment with community values.